Science Enrichment and Career Opportunity Workshop

The GMI Engineering & Management Institute will initiate a three-week, commuter Young Scholars project in the fields of Chemistry and Physics for 30 students entering grade 9. The selected students will participate in hands-on science activities involving chemical analysis and measurements, environmental chemistry, polymer science, lasers, holography, and investigations of the properties of light. Activities have been selected that are both exciting and educational. Participants will be divided into small groups to conduct a short research project. A portion of the three-week workshop will involve career awareness activities such as question and answer sessions with visiting scientists and engineers and field trips. The nine monthly follow-up activities will involve hands-on science activities, dynamic speakers, field trips, and competitive events.